Workshop in Plant Reproductive Biology

9354008 Inouye This workshop on plant reproductive ecology, one of the most dynamic fields in ecology, emphasizes pollination biology. It will be conducted at the Rocky Mountain Biological Laboratory, a field station known well for its facilities and its research on this topic. Participants will review basic concepts in plant reproductive biology, learn new laboratory and field techniques for pollination studies, and discuss how these experiences can be incorporated into a variety of undergraduate biology courses at any institution. Participants will conduct individual research projects and help prepare a lab manual. ***